CTEQ School on QCD Analysis and Phenomenology; SUNY at Stony Brook.

Quantum chromodynamics (QCD) is a basic component of the Standard Model of fundamental forces. It is the force that binds the atomic nucleus, forming protons and neutrons from their more elementary constituent particles called quarks and gluons. The theory of QCD is indispensable in the search for novel physical laws at high-energy accelerator laboratories in the U.S. such as Fermi National Accelerator Laboratory, Stanford Linear Accelerator Laboratory, Brookhaven National Laboratory, and at others elsewhere in the world. This grant will fund an intensive, week-long school in high energy physics which will familiarize advanced graduate students and postdoctoral fellows with a broad spectrum of topics in QCD. In-depth presentations by well-known experts, both experimentalists and theorists, will be complemented by extensive discussions between students and lecturers.